Soundprint Explores Science

SOUNDPRINT, the weekly half-hour, nationally heard public radio documentary series proposes SOUNDPRINT EXPLORES SCIENCE, five programs that will make science more understandable and accessible to general audiences, with secondary use in instructional settings. SOUNDPRINT proposes three different treatments of science: 1) Programs that profile scientists and the life of a scientist; 2) A comprehensive examination of a long-term science project; and 3) Explorations of issues on the frontiers of science. Two programs will profile scientists to illustrate what it is like to live the life of a scientist, how she/he became interested in a particular subject, why it is important, current research on the subject and scientific method. One program will trace, over time, a scientific project: it will be recorded over time and presented in a compressed half hour. Listeners will learn about the scientific method, share in the human interest and suspense. Two programs will bring listeners the latest thinking on a subject from individuals working on a scientific frontier and present it in an engaging, understandable manner. SOUNDPRINT has a successful track record of initial science programming within the on-going series. SOUNDPRINT documentaries combine journalistic excellence, personal storytelling and state-of- the-art audio production to create compelling programs which present issues and ideas in an accessible, memorable way. Distributed by the American Public Radio Network, SOUNDPRINT reaches over 300,000 listeners each week; cassette copies of program reach a broad post-broadcast audience in schools, libraries, community centers, youth centers, colleges and informal sharing by listeners.